Molecular Dynamics in Fluids by Vibrational Spectroscopy andCW Stimulated Brillouin Gain Spectroscopy

The Experimental Physical Chemistry Program has made an award to Professor Richard A. MacPhail to study molecular dyanamics in fluids by vibrational spectroscopy and CW stimulated Brillouin gain spectroscopy. The goal of this research is to provide new and better data on molecular dynamics in liquids. Vibrational spectroscopy is used to probe rapid shape changes in molecules and the Brillouin technique is used to measure dynamical properties over many molecules. Raman spectroscopy is to be employed to probe the damping of torsional vibrations in liquid n-butane and pseudorotation dynamics in liquid cyclopentane. On the vibrational timescale, these two cases correspond to the high barrier and low barrier limits of unimolecular reactions in liquids. This work will be extended to cyclobutane and cyclopentene, which lie in the intermediate barrier regime. The CW stimulated Brillouin gain spectrometer, begun under the previous grant, will be used to observe collective dynamics in supercooled liquids, including glycerol, salol and low temperature optical glass.